Decision Trees and Discrete Search Problems

This project explores two aspects of discrete search:(a) The search for the majority in the set of objects;(b) The search for critical points in an unknown function.In both cases the main tools are detailed analyses of binary decision trees and Kraft's inequality. The goals of the project include the design of, analysis of and the proof of lower bounds for search algorithms. ***